PRF/M: Molecular Phylogeny of Loculoascomycetous Fungi

More than 30 years ago, the subclass Loculoascomycetes (of the Class Ascomycetes, among the true fungi) was defined on the basis of the morphology of two reproductive characters: the ascostroma and bitunicate ascus. The implied phylogeny has been derived for over 9500 species using a combination of multiple traits from the ascostroma and a single ascus type. Current disagreement over classification of the group (especially higher taxa) demonstrates the lack of a clear understanding of underlying monophyletic groups. A robust phylogeny from which a nested set of monophyletic groups can serve as the source of classification is needed. Dr. Don R. Reynolds, of the Natural History Museum of Los Angeles County, will address this issue with molecular data. Research will focus on 32 Loculoascomycete species and will entail sequencing the relatively large, evolutionally conservative and tandem repeated nuclear ribosomal DNA. Such analyses promise to yield useful data for study of ancestral sequence divergence. The genus Neuropora will be used in outgroup analysis. The Polymerase Chain Reaction coupled with rapid DNA sequencing methods will be used to analyze the small mitochnodrial subunit rDNA and the nuclear rDNA, including the genes for 18s rRNA, 28s rRNA, 5.8s rRNA, and the intergenic spacer region. The work will be carried out over a 12-month period beginning in September 1989 at the University of California, Berkeley, in the laboratory of Dr. John W. Taylor.